Continuous Air to Vacuum to Air (AVA) High Throughput Vacuum Deposition of Thin Films

DMI-9713699 Sampath This research is to investigate the physical vapor deposition (PVD) source and to increase the understanding of the vapor source and process monitoring for the Air to Vacuum to Air (AVA) high throughput vacuum deposition of thin films process. The research focus involves modeling both the vapor source flux uniformity and on uniform source charge depletion to gain an increased understanding. The vapor source control strategy will also be studied to understand in-situ sensor requirements for process control. These quantitative models will be experimentally verified through the deposition and study of semiconductor thin films for thin film devices and photovoltaics. This research in understanding of the PVD vapor source has potential applications in a large number of thin film industries, including flat panel display and photovoltaic industries. In addition, the proposed research on improved film uniformity and uniform charge depletion and in-situ temperature measurement would have direct benefits to many vacuum deposition industries. This is especially true for bigger wafer size in the future.